Baltimore Urban Systemic Initiative

9453666 Richardson The Baltimore Urban Systemic Initiative (BUSI) has as its core a vision that seeks to provide the mathematics and science fundamentals which will permit all students to participate fully in a technological society and enable a significantly greater number of Baltimore students to pursue careers in mathematics, science, engineering, and technology. The BUSI features five major components: (1) a new standards-based, K-12 science, mathematics and technology (SMT) curriculum which includes increased science and mathematics content and hands on, student-centered pedagogy; (2) extensive professional development for teachers to support the new curriculum; (3) a variety of academic enrichment and support services offered directly to students and teachers; (4) policy changes that "enable" systemic change; and (5) the use of the "Efficacy Model" to alter the belief systems of students and school personnel as to the ability of all students to perform at a high level and succeed in obtaining a quality SMT education. The Initiative will be implemented in partnership with Morgan State University (MSU). Professional development for teachers will be offered through MSU and other local universities and informal science organizations. MSU's successful Comprehensive Regional Center for Minorities will be an integral component of the BUSI plan, with particular responsibility for providing student enrichment activities.